NEDG: Locally-optimal Power, Rate Adaptation and Scheduling in Wireless Networks

The growth of communication networks has profoundly increased
the availability of information and increased productivity. A
key requirement in continuing to reap the benefits of connectivity
is the growth of pervasive wireless networks. Wireless networks
are resource constrained, primarily due to their broadcast nature.
Alleviation of this constraint requires an efficient, distributed
solution to the Medium Access Control (MAC) problem. In this project,
the investigators study `locally-optimal scheduling and PHY
adaptation', by incorporating physical layer (PHY) models into
maximal scheduling for increased accuracy, and priority mechanisms
for increased efficiency. This will result in the design of
efficient, distributed MAC protocols, whose guarantees are accurate,
from the PHY perspective. The results from this research, which is
training a graduate Ph.D., are disseminated through appropriate
publications and seminars, to guide the development of future
wireless network MAC protocols and are incorporated into the
university’s undergraduate and graduate courses.

PHY adaptation and scheduling (MAC) in general ad hoc wireless
networks, is an NP-hard problem, especially, if distributed
solutions are desired. In this project, the investigators study
locally-optimal algorithms, a generalization of maximal scheduling,
using broad queuing results that prove stability, and adapt them
to wireless networks, with careful attention paid to the PHY model.
Theoretical characterization of the performance of these algorithms
is carried out using graph theoretic and optimization theoretic
analysis, along with intuition on the design of optimal (though,
centralized) MAC algorithms. The key ideas of this research, which
are at the intersection of communication theory, queuing theory,
graph theory and optimization, are incorporated into university
courses, using the concepts of Lyapunov functions and fluid models.